Young Scholars in Astronomy and Space Science

9452797 Lee The Louisiana State University at Baton Rouge will initiate a four- week, residential, Young Scholars Project in astronomy and space science for 24 female students entering grade 10. The participants will learn the methodology of science research by immersion into the research activity of senior faculty in the Department of Physics and Astronomy and other faculty in the physical science departments of the College of Basic Sciences. The students will be involved in classroom lectures and discussions, hands-on laboratory and research activities, field trips, and seminars that will expose them to the nature and excitement of space research and its application to additional disciplines such as computer and information science, geophysics and the environmental sciences.